Project: Science Unveils Mysteries (Project SUM)

"Project SUM" is a new, community-based initiative intended to provide unique opportunities for 250 local middle and high school girls and boys to explore science, mathematics, engineering and technology through after-school, weekend and summer programs. The project is based on the A-MAN program located at their 7,500 square-foot international discovery and learning center. The program encourages young people from disadvantaged backgrounds to consider entering the fields of science, mathematics, engineering or technology. The program combines a multi-faceted informal science education experience with a strong link to the formal education programs in local schools. The program will operate Monday through Saturday with two 84-student cohorts (named, Mercury and Gemini) and one 82-student cohort (Apollo) each participating in Project SUM activities two days per week for 3.75 hours each day.